CAREER: Understanding and Facilitating Numerical Discriminations in Infancy

Infants are sensitive to numerical information in the world around them, and evidence suggests that the ease with which they discriminate the number of items in a set may be correlated with later achievements in mathematics in the classroom setting. While much work has been dedicated to identifying simple and effective means for targeting math skills in school-aged children, no work has identified similar interventions for enhancing numerical abilities in infancy. Can infants be taught to attend to number? If so, does this training have lasting effects? The first goal of this project is to validate simple and inexpensive methods for facilitating numerical discriminations in preverbal infants, long before mathematics difficulties may be encountered in the classroom.

The second goal of the project is to clarify how it is infants and young children make the connection between these preverbal representations of number and verbal count words. Many studies have focused on examining the acquisition of verbal counting in preschoolers, however few, if any have examined the receptive language end of this question -- namely, at what point do infants understand that words can refer to numbers? What factors facilitate and/or hinder their ability to form the mapping between words and numerosities? By exploring the relationship between language and number in preverbal infants, this project will provide a foundational understanding of exactly what conceptual knowledge young children bring to the table when learning to count.

The educational and research integration plan of the project involves a three-pronged approach of (1) graduate and undergraduate training in developmental research, including the initiation of a summer internship program for students at undergraduate institutions with limited research opportunities, (2) the development of a new undergraduate research-based course on infancy, and (3) the creation of a free annual lecture series for parents in the greater Boston area interested in learning about infant cognition, with the goal of helping parents become better consumers of scientific information and of infant-oriented marketed products. Combined, this project has the potential to impact education both at Boston College and throughout the Boston community, to inform our understanding of the mapping between preverbal with verbal representations of number, and to identify effective interventions to enhance the preverbal foundations of mathematics that can be implemented at a much earlier age and across the socioeconomic spectrum.